Theory of dynamic cytoskeletal length regulation and stabilization

NONTECHNICAL SUMMARY
This award supports theoretical and computational research, and education on the fundamental mechanisms that determine size of living organisms and biomaterials. When biological organisms grow, they regulate the size that they reach: for example, people grow to their adult height and then remain that tall. Therefore, sensing and regulating size is an essential physics problem that biological organisms solve. Living systems control the size not just of whole organisms, but also of smaller internal structures (organs, cells, and structures inside cells). The physical principles and mechanisms underlying the sensing and control of size in biology are not well understood. This project will develop new physics-based models to understand and predict how length of one class of subcellular structures are regulated in organisms. Related mechanisms may be useful in regulating the growth of polymers and biomaterials. This project will develop interdisciplinary research and education, and work to improve diversity in science.

TECHNICAL SUMMARY
This award supports theoretical and computational research, and education on the fundamental mechanisms that determine size of living organisms and biomimetic biomaterials. Regulating physical size is an essential problem that biological organisms must solve, but the physical principles and mechanisms underlying the sensing and control of size in biology are not well understood. The regulation of polymer length is important for the organization of the cellular cytoskeleton, which affects the size of subcellular organelles such as the mitotic spindle and the structure of cells themselves. An important general question is how to use molecular-level information to understand and predict higher-order aspects of assembly and organization. Remarkably, many cytoskeletal assemblies can maintain a constant, self-organized length, even though they are nonequilibrium structures with constant molecular turnover. While significant previous work has focused on steady-state spindle length, the PI aims to advance understanding of dynamic spindle length regulation. Results from this work will provide a basis for developing predictive understanding of dynamic length regulation and cytoskeletal self-assembly.
The work is built on theoretical and modeling tools, including tractable analytic models, semi-analytic and numerical analysis, simplified simulation models, and detailed three-dimensional simulations. This project will address how length regulation and its dynamic stabilization can emerge as a collective property as the level of cytoskeletal assembly changes from single filaments, filament bundles, and the mitotic spindle. The work will focus on two scientific questions. First, what are the general mechanisms of length sensing of single cytoskeletal filaments, bundles, and higher-order assemblies? While previous length-sensing work has assumed monotonically length-dependent processes, this work will conduct a wide-ranging theoretical investigation into classes of length sensing, inspired by currently known biological processes. Second, what types of feedback and amplification lead to dynamically stable or unstable length regulation? Recent work demonstrates that mitotic spindle length is dynamically stabilized at a steady state value, and that this stabilization can be perturbed, causing large length fluctuations. The work will perform a general investigation of classes of feedback and amplification that lead to dynamically stable or unstable length of cytoskeletal assemblies. Mechanisms explored in the research may be applicable to regulating the growth of polymers and biomaterials.
The work will provide insight into biologically relevant general mechanisms of length sensing and regulation, by determining how bundling, spatially non-monotonic activity, and force-dependent regulation can effect length sensing. The work will develop understanding of the dynamic stabilization, and investigate whether there are different characteristic modes of dynamic destabilization. Research advances may have applicability to growth of biomaterials and soft materials more generally. This project will also test mechanical contributions to spindle length stabilization, by considering how spindle components contribute forces and feedback that enable constant, stable spindle length. This will improve understanding of collective self-assembly in cells. The project is an integrated interdisciplinary program of theoretical biophysics and statistical mechanics informed by cell biology and genetics to gain insight into cytoskeletal length regulation and stabilization. The PI works to increase gender and racial diversity in science through multiple activities.